U.S.-Korea Joint Workshop on Coastal Prediction/Forecasting for the Korea Strait and East/Japan Sea

INT-0209649
Dong-Ping Wang
$19,140

The proposal requests support for 6 U.S. participants to a 3-day workshop to be held in Seoul, Korea. This U.S.-Korea Joint Workshop is about the coastal ocean prediction/forcasting for the Korea Strait and the East/Japan Sea (KSES). The workshop will review the current knowledge of the oceanography of the KSES, formulate recommendations for developing coastal model(s) with real-time capacity, and explore opportunities for new collaboration between the US and Korea scientists.